Constitutive Modeling and Numerical Simulation of Soft Ground Tunneling

9312707 Voyiadjis This research is to develop an accurate constitutive model for the remolded soil slurry at the front of the cutter head of a tunnel boring machine. The material in this highly deformed region will be considered as a Cosserat continuum, and the results implemented into a finite element type computer code. The experimental and numerical results obtained in this work will assist in the development of underground space. ***